Computational Problems in Multicomponent Materials and Multiphase Fluids

The main objective of this proposal is to investigate processes
fundamental to the behavior of multicomponent fluids and
multiphase materials. We will do this by (1) developing and applying
state-of-the-art numerical methods to large scale computation and (2)
analytical, numerical and modelling studies of important constituent
processes. More specifically, our focus will be on developing,
implementing and analyzing successively more realistic models of the
diffusional evolution of microstructure in solid/solid phase transitions.
Our investigation of multiphase fluids includes a study of ternary fluid
flow where only two of the components are immiscible. These projects
involve fundamental physical processes whose phenomenology is basic to
understanding the behavior of real fluids and the material properties of
solids. Both are characterized by the presence of multiple constitutive
components, complex pattern formation and/or singularities (i.e. spatial
complexity). Although these processes arise in very different physical
phenomena (fluids versus solids), both involve free boundary problems
where the motion of a bounding interface, separating the different
components, is driven by a competition between surface energy and either
an instability or multi-body interactions. As such, they can be treated
using a common set of analytical and computational tools. The highly
nonlinear nature of these problems makes fast, accurate and robust
numerical methods essential to their study.

In this proposal, we bring together mathematical and numerical
analysis, modelling, and large-scale scientific computation to study
certain fundamental problems in fluid dynamics and materials
science. Our focus will be on developing, implementing and analyzing
successively more realistic models of the diffusional evolution of
microstructure in solid/solid phase transitions. These transformations
are an important method of processing multicomponent metallic alloys such
such as steels. The result of this process is the formation of a multiphase
microstructure, which is a key variable in setting the macroscopic
mechanical properties (i.e. stiffness, strength and toughness) of the
alloy. The microstructure is characterized by regions of different metallic
components separated from one another by interfaces. The goal of our
research is to accurately model and simulate the formation of microstructure
in alloys in order to provide metallurgists with a recipe for generating new
alloys with desirable material properties. Our investigation of multiphase
fluids involves modelling liquid/liquid extraction processes that are widely
used in chemical production and waste processing. In these processes, two
(or more) fluids are placed in contact and a contaminant in one of the fluids
diffuses preferentially into another. The first fluid thus is cleaned and is
then extracted. In these processes, two (or more) fluids are placed in contact
and a contaminant in one of the fluids diffuses preferentially into another.
The first fluid thus is cleaned and is then extracted. If the contaminated
fluid is broken up into small droplets, the interfacial area and hence mass
transfer is increased. We will use analysis, modeling and large scale
scientific computation to study reaction and mixing rates within these
systems. The ultimate goal of this work is to provide a theoretical
foundation for improving the performance of liquid/liquid extractors.
Although the two problems described above arise from very different physical
processes (fluids versus solids), they are similar in the sense that the
relevant phenomena is strongly influenced by surface tension at the
respective interfaces. Consequently, they can be studied using common
analytical and computational tools. The highly complex nature of these
problems makes fast, accurate and robust numerical methods essential to their
study.